Multiple Trigonometric Series and Multiple Walsh Series

Proposal Abstract

A square partial sum of a double trigonometric series is the sum of all the
terms with both indices less than or equal to a fixed value. Our first goal is to
study square uniqueness for double trigonometric series. By this we mean that if
the sequence of square partial sums of a double trigonometric series converges to
zero everywhere, then the series is necessarily the trivial series. If this is true, we
will then try to generalize this result to higher dimensions. The corresponding
statements for circular/spherical convergence have been shown by Shapiro in
dimension 2 and by Bourgain in higher dimensions; and by Ash-Freiling-Rinne
and, independently, Tetunashvili for the unrestrictedly rectangular convergence
case in any dimension. There is some evidence that square uniqueness may
actually be false. For example, there is an everywhere square convergent double
trigonometric series with coefficients having faster than polynomial growth rate.
Our second goal is to study a related question: uniqueness for multiple Walsh
series under different types of summation modes. The new approach we will
take is to use classical harmonic analysis methods. By combining the traditional
martingale approach with the new techniques developed from recent progress
made in the area of multiple trigonometric series, we expect much progress
can be made here. This in turn may give insights into the square uniqueness
question for trigonometric series. The third goal is to study the long standing
open question about the pointwise circular convergence for Fourier series of
square integrable functions. We will try to shed some light on this by studying
the corresponding question for double Walsh series, which are special form of
tree-index and two parameter martingales.

Almost any surface is composed of simpler ones by a process called multiple
Fourier analysis. A major long standing problem in pure mathematics is to
show that this construction can be accomplished in only one way. This is called
the problem of uniqueness. There are about a half dozen main varieties of this
problem depending on just how the simpler surfaces are combined to make the
general surface. Gathering the simple surfaces in different orders may lead to
different resultant surfaces. For certain gathering procedures, uniqueness has
been proved. That is, for such gathering, there is only one way to produce
the resultant surface. The most important gathering procedure for which the
uniqueness remains an open question is called square convergence. We will try
to determine if uniqueness holds for this procedure. Another way to construct a
surface is to build it up as a combination of two dimensional oscillating square
waves. Such a process is called a multiple Walsh series. We will consider the
uniqueness question in this context also. We hope that understanding one of
the two methods of construction may lead to insights about the other.